Magnetic Resonance Force Microscopy for Characterization and Read-out

Endohedral fullerenes (molecular compounds in which an atom with an electronic moment resides inside a hollow "buckyball" molecule) are attractive candidates for quantum bits (qubits) because the endohedral fullerene chemically and electrically protects the electronic moment that will serve as a qubit leading to long spin relaxation times and the opportunity to build the computer on surface without the need for burying. The goal of the project is the application of a magnetic resonance force microscope to the detection and study of individual endohedral fullerenes, and to the fabrication, characterization and readout of the computer, ultimately with single spin sensitivity, it is hoped. To achieve this techniques for manipulating and studying fullerenes on surfaces will be developed, and high sensitivity magnetic resonance force microscopy studies of their magnetic properties will be performed.